Synthesis and Reactivity of Transition-Metal Aldehyde Complexes

With this award the Inorganic, Bioinorganic, and Organometallic Program supports research by Dr. Frederic R. Askham of the Chemistry Department, University of Delaware, on neutral and anionic transition metal eta-2-aldehyde complexes. A new reaction sequence for synthesis of complexes of this type will be extended to transition metals other than zirconium, on which the method has already proven successful, and applied to the preparation of pure chiral aldehyde complexes. The method involves the addition of a lithiated stannane to the aldehyde followed by metathetical transmetallation. The reactivity of the compounds synthesized will be studied, with special emphasis on the mechanism of homogeneous carbon monoxide hydrogenation catalysis, synthesis of transition metal alkylidenes, and stereospecific formation of carbon-carbon bonds. %%% This research has implications for improving and developing catalysts, particularly those for stereoselective synthesis. Catalysts which lead to highly pure products with minimal waste are an important aspect of environmentally benign chemical synthesis and processing.